Dissertation Research: Relating Riverine Aquatic Habitat to Three-Dimensional Flow and Geomorphological Form

This dissertation research will link, in an innovative fashion, theory and methods in fluvial geomorphology and stream ecology to provide an improved understanding of the relations between hydrodynamic complexity and habitat diversity in human-impacted stream systems. The intent is to relate fish habitat in several Midwestern streams to various three-dimensional attributes of the fluvial system. The scale of analysis corresponds roughly to channel bars, pools, and riffles. Field measurements will be made of channel cross-sections, fluid flow patterns, fish populations, and water quality. Statistical and GIS analyses will be conducted to reveal associations between the ecology and geomorphology. Results are particularly germane to stream ecology and habitat management.